The Neumann Problem for the Tangential Cauchy-Riemann Complex and the CR Embedding Problem

SupermanSProposal DMS-0406060
PI: John M. Lee, University of Washington

The Neumann Problem for the Tangential Cauchy-Riemann Complex and the CR
Embedding Problem

ABSTRACT
Technical description of the project:

The proposed research will study existence and regularity theorems for the
natural Neumann boundary problem for the tangential Cauchy-Riemann equations
on smoothly bounded domains in CR manifolds. All known existence results
for this problem work only on domains with very special defining functions,
namely those that depend only on the real and imaginary parts of a single
CR-holomorphic function. The key idea of this research is to use the fact
that such a defining function provides a codimension-2 foliation (near the
boundary but away from characteristic points) by compact CR-submanifolds.
By using known estimates for the Kohn Laplacian on the compact leaves, one
can reduce the Neumann problem to a (generally non-coercive) elliptic
boundary problem in a plane domain. These results are expected to have
applications to such problems as the local CR embedding problem, local
deformations of CR structures, characterizing domains on which the
tangential Cauchy-Riemann complex is solvable, regularity of maps between CR
manifolds, and the existence of local frames for CR vector bundles.

Non-technical description:

The geometry of complex manifolds (geometric objects in which complex
numbers instead of real numbers can be used as coordinates) has recently
begun to play a surprisingly important role in both mathematics and physics.
For example, in string theory, physicists postulate that the fundamental
particles of matter are actually "quantum strings" that vibrate inside
sub-microscopic complex manifolds called Calabi-Yau manifolds. The
principal analytic tool for studying complex manifolds is the Cauchy-Riemann
equations, a system of partial differential equations that characterizes,
among other things, those functions that have complex derivatives. When one
studies surfaces within complex manifolds (such as the "branes" that arise
in string theory), the Cauchy-Riemann equations need to be replaced by a
much more complicated system called the "tangential Cauchy-Riemann
equations," which we are just beginning to understand. This proposal will
develop new techniques for studying some deep analytic questions surrounding
the solvability of the tangential Cauchy-Riemann equations, which are
expected to be of fundamental importance in understanding the geometry and
analysis of surfaces in complex manifolds.